A Foundational Knowledge Representation For Knowledge-Based Systems

This research concentrates on the modelling, extension, and use of an associative knowledge base ranging over the English Language as a whole. Our existing topological model of English semantic space has been employed experimentally for information analysis, including the exclusively rule-based resolution of semantic ambiguity. Specific thrusts of this work include further research on the global structure of the knowledge base, especially as to implications of relaxing, and also increasing, the strength of the connectivity definition -- for on this definition depends the elaboration of the semantic distance metrics. Such semantic distance metrics, and other structural components, are implicit in the proposed efforts to 1. automatically add specialized terms (for narrow domain knowledge applications) to appropriate semantic sub-spaces; 2. explore the relationship between non-monotonic reasoning and semantic spaces in the knowledge base (e.g., how do shifts among associative sub- nets relate to rejection of "old" information and the addition of new information?): 3. explore the possibility that the associative memory structure of the knowledge base implicitly already contains information of the type currently explicitly and manually pre-encoded for knowledge bases (implicit availability would enable a system either to access such information automatically or to bypass it); 4. explore the relationship between the associative knowledge base and the generic human machine learning models incorporated in current natural computation, neural computing, and genetic computing; 5. precisely establish uses for Rough sets as a multi-valued Knowledge Representation Structure for English semantic space when there is a degree of uncertainty in the knowledge encoded.